U.S.-Bulgaria Project Development in Molecular Biology: Tomato Spotted Wilt Virus

Dr. Kalin DudoV of the Genetic Engineering Institute, Bugaria, will visit Dr. James Moyer of North Carolina State University to prepare a cooperative research project on Tomato Spotted Wilt Virus (TSWV). The resulting proposal is intended for consideration under the U.S.-Bulgaria Cooperative Science Program and if successful, should contribute to our knowledge of the molecular basis of biological variation in TSWV.